Collaborative Research: Shallow Circulation in the Tropical Pacific: A Geochemical and Modeling Study

This work will be a study of processes that determine the structure
and variability of the thermocline in the equatorial Pacific. Data
describing the distribution of various chemical tracers will be
compared with simulations made with a general circulation model.
The aim is to improve modeling skill, gain a better understanding of
the processes that transport tracers in the tropical Pacific, and to
use the historical tracer data to identify variations in the tropical
upper-ocean circulation. One of the tests of the model will be a
comparison between the model's prediction of 14C concentration in
the Pacific with 14C time series derived from corals in the tropical
and subtropical Pacific.